Presidential Young Investigator Award: Inverse and Design Problems in Manufacturing

The general focus of this research is on the development of numeric methods for engineering simulation and design. Emphasis is placed on the analysis of ill-posed inverse and design problems arising in solidification processing and non-destructive testing of materials, optimum metal forming processes, and thermomechanical modeling of solidifying bodies. Successful algorithmic development will result in quantum improvements in engineering design computations.